Mathematical Sciences: Leveraged Bootstrap

DMS 96-26532 Ren The objective of this research is to investigate a new resampling method, called the Leveraged Bootstrap. The Leveraged Bootstrap facilitates research in a broad class of nonparametric and semiparametric statistics using various types of censored data, including right censored data, doubly censored data, interval censored data, etc.. This method does not depend on the extensions of the usual statistics for complete data to incomplete data, and is simple, computationally efficient and easily applicable to a wide of variety of statistical inference problems with different types of censored data. In this research, the following issues are considered: (i) how the leveraged bootstrap should be applied in practice; (ii) the efficiency of the leveraged bootstrap; (iii) comparison with other methods. Specifically, the investigator studies the application of the leveraged bootstrap in some statistical inference problems such as the empirical likelihood methods in constructing confidence bands and tests, and the hypothesis testing problems which are associated with several statistical models. %%% Various types of censored data are generally referred to as incomplete data in statistics literature. For instance, a patient who has died from heart disease cannot go on to die from lung cancer. In such a case, the survival time of lung cancer of the patient is incomplete. Recently, doubly censored data and interval censored data have been encountered in some very important clinical trials such as breast cancer research and AIDS research. The statistical research on these types of censored data still generally lags behind that on right censored data. The principle difficulties in statistical analysis using these complicated types of censored data are that the usual methods developed for complete data often do not have direct extensions to incomplete data, and that the usual nonparametric bootstrap can be quite computationally time consuming in certain cases. This research is to develop some new statistical methods which are accurate, computationally efficient and easily applicable for different types of censored data. ***